MRI: Development of a High-Speed Frequency Domain Imaging System

0421526
Faris
The research presented in this proposal involves the fabrication and subsequent use of a frequency-domain imaging system. This system will be the only system of its kind and will allow for high-speed, sensitive imaging of in vivo tumors, and small animals. In addition, this research will also allow for the imaging of chemical reactions taking place in microdroplets.